Using Evidence: An Analysis of US and German Science Teaching and Learning

The Center for Assessment and Evaluation of Student Learning (CAESL) CLT proposes a project in collaboration with German researchers from the DFG. The project grew out of joint meetings between CLTs and projects funded through the DFG. This project focuses on creating a common analytic framework on the use of evidence in specific science domains and the kinds of teacher actions that enable students to use evidence effectively.